US / Japan Future Network Workshop

This is a request to support a US / Japan Future Network Workshop. The Workshop will bring together leading US and Japanese network researchers and network research infrastructure developers.

The workshop will bring together a diverse group of researchers from the US and Japan to discuss the science and technology advances needed to advance our fundamental understanding of the design, deployment and operation of the increasingly complex, networks of the future. The outcome of this workshop will lead to a better understanding of network research and
network research infrastructure activities in the two countries.

The proposed workshop will result in more efficient ways of how peer researchers in networking research and infrastructure, from both countries, will collaborate and communicate with each other. The workshop has potential for the development of individual linkages between peer
researchers in each country.